Nuclear and Elementary Particle Astrophysics

This award funds continuing studies of one of the worlds leading groups of theoretical cosmologists. Wroking at the interfaces of particle physics, nuclear physics, and astrophysics, these investigations will refine our understanding of light element evolution, big bang nucleosynthesis, supernova neutrino physics and the interplay of early and late stage particle physics phase transitions with galaxy and structure formation and the dark matter problem.